Interdisciplinary, Mobile Field Data Base System

The purpose of this project is to develop and enhance the quality of the Natural Sciences courses through realistic and engaging field labs which provide students a more comprehensive and in-depth experience. It uses the Payne's Prairie State Preserve as a field site for gathering a variety of data in the four related disciplines (biology, ecology, chemistry and geology) and uses the interdisciplinary data base to generate realistic and engaging lab exercises in 15 courses with an annual enrollment of 5,930. The Payne's Prairie State Preserve is a 12,000 acre, natural, protected site, ten miles from the College which is a sanctuary for thousands of species of flora and fauna unique to north central Florida. The College has been given access to remote areas of this protected land.The major equipment request falls into three groups: 1. Computers and peripherals to establish and maintain a data base to be shared by the four discipline groups. 2. Equipment necessary to establish permanent meteorological sites. 3. Video equipment with a display board to link images with computers.NSF grant funds are being matched with funds from non-federal sources.